Number Theory with Emphasis on Algorithms and Algebraic Number Theory

Lenstra
0100485

The proposed research belongs to the interface between number theory and
algebra. It is inspired by problems that come up in an algorithmic
context and in arithmetic algebraic geometry. Altogether, the proposal
contains 19 problem sets: five from Algorithmic Number Theory, three
from Algebraic Number Theory, five from Commutative and Homological
Algebra, three from the Geometry of Numbers, and three from Group Theory.
The collection has been composed with a view towards assisting the
investigator's many current and future graduate students in choosing
suitable thesis subjects. The problems have the appealing features of
appearing to be feasible without being trivial, and of being specific
without being narrow. They belong to mainstream areas that will also
serve the students after obtaining their degrees. Of the nineteen
problem sets, the following two are both easy to formulate and
attractive. The first is the development of an algorithmic theory of
quadratic forms over rings and fields of arithmetic interest. A typical
question is how quickly one can find a representation of a positive
integer as a sum of four squares. Or: it is known that any odd unimodular
indefinite inner product space over the ring of integers is
diagonalizable; given the symmetric matrix that defines the inner
product, how quickly can one find the change of basis that diagonalizes
the form? A first investigation shows that one may expect a wide spectrum
of answers to the algorithmic questions in this area, displaying all the
riches of number-theoretic algorithms. The second is giving class number
estimates for orders in number fields. What is a good upper bound for the
number of equivalence classes of fractional ideals of a giving order,
expressed as a function of the degree and the discriminant of the order?
And can one find better estimates for orders that have nice properties,
such as being Gorenstein? This type of question is of importance in the
theory of abelian varieties, and one will need to apply techniques coming
from commutative algebra, abelian group theory, combinatorics, and
elementary analytic number theory.

In order to place the project in perspective one may consider the recent
development of number theory. Present day number theory differs in two
important respects from number theory twenty five years ago, namely in
the roles played by algorithms and computers, and by algebraic geometry.
It has been found that algorithmic number theory has important
applications, notably in cryptography, and in addition number theorists
have learned how to use computers for their research. Inventing good
computational methods for number-theoretic problems has thus become of
central importance. One of the principal investigator's strengths is in
the interaction between theory and practice, on the one hand using recent
theoretical advances for algorithmic purposes and on the other hand
deriving purely mathematical inspiration from the problems suggested by
the applications. At the other end of the spectrum, knowledge of
algebraic geometry has become a standard requirement for aspiring number
theorists. Virtually every breakthrough in number theory over the past
few decades, including Andrew Wiles's work on Fermat's Last Theorem, has
involved arithmetic algebraic geometry. Algebraic geometry depends on a
broad spectrum of techniques from algebra and algebraic number theory,
and gives rise to an unending array of tantalizing questions in those
areas, of which the project studies a sample. What is maybe the most
exciting of all, is the way in which arithmetic algebraic geometry and
algorithmic number theory are presently being tied together, both in the
application of geometric objects to cryptography and in the application
of algorithmic techniques to investigate geometric objects in number
theory. The project will be carried out by the investigator's graduate
students, many of whom will, as experience shows, acquire combined
expertise in these two areas, which is a very precious but fairly rare
commodity.